Formal Power Series and Algebraic Combinatorics Conferences in 2007 and 2008

In July 2007, the nineteenth international conference entitled Formal
Power Series and Algebraic Combinatorics (FPSAC) will be held at
the Center for Combinatorics at Nankai University in Tianjin, China.
In June 2008, the twentieth FPSAC international conference
will be held in Valparaiso, Chile. The funding from this grant will be
used to exclusively support the attendance, at each of these 2 conferences, of
45 graduate students, post-doctoral students, early career researchers, and
researchers from underrepresented groups, who are studying or working at
American Universities.

Traditionally, the FPSAC conferences feature 9 plenary speakers, approximately
30 contributed talks, and 2 poster sessions. The number of participants varies
between 120 to 200 from all around the world, of whom between 70 to 120 are
graduate students and early career researchers. The continuing success of
the annual FPSAC conferences stems in part from their considerable
interdisciplinary breadth---linking leading researchers in combinatorial
mathematics with strong researchers in allied fields drawn from pure and
applied mathematics, theoretical computer science, physics, and biology. The
considerable span of this conference series is unique among international
conferences with an emphasis on combinatorial mathematics.

The principal topics featured during the next two FPSAC conferences will be:
algebraic and enumerative combinatorics and their applications and
relations to other areas of mathematics, physics, biology, and computer
science. The interdisciplinary span is evidenced by the choice of
plenary speakers. All the plenary speakers for China have confirmed their
participation. Those are: Bruce C. Berndt (U. of Illinois, USA), Philippe Biane
(Ecole Normale Superieure, France), Anders Buch (Rutgers U., USA), Maxime
Crochemore (U. of Marne-la-Vallee, France), Eva-Maria Feichtner (U. of Stuttgart,
Germany), Sergey Fomin (U. of Michigan, USA), Ezra Miller (U. of Minnesota, USA),
Soichi Okada (Nagoya U. Japan), and Peter Paule (U. of Linz, Austria).
As for the FPSAC'08 in Chile, the following speakers have confirmed their
participation: Marcelo Aguiar (Texas AM), Micheal Albert (U. of Otago,
New Zealand), Jonathan Brundan (U. of Oregon, USA), Ian Grojnowski (U. of
Cambridge, UK), Maria Ronco (U. de Valparaiso, Chile). The Chair and co-Chair
for the Scientific program of the FPSAC'07 conference are: Bill Chen of Nankai
University, China and Jean-Yves Thibon of the University of Marne-La-Vall\'ee,
France. For the FPSAC'08 conference the chair and co-chair are: Luc Lapointe
of the Universidad de Talca, and Bruce Sagan of Michigan State University.

A distinguishing characteristic of FPSAC conferences is the concerted
effort to recognize and encourage outstanding young scientists. This
is accomplished in part by choosing at least one plenary speaker to
be an ``emerging'' star (Eva-Maria Feichtner, Marcelo Aguiar and Jonathan
Brundan) and by ensuring that talented young researchers are well represented
among the speakers selected for contributed talks. Another special feature of
the FPSAC conferences is a continuing effort to emphasize inclusiveness among
participants. The conference seeks to draw substantial participation from
groups which have been traditionally under-represented in the mathematical
sciences. Attendance at these two conferences will be exceptionally valuable
for graduate students and junior researchers. China has a vibrant community
of researchers in combinatorics, and in recent years they have sought to
significantly increase their international research collaborations.
This will be a unique opportunity for graduate students and
early career resarchers to develop ties with Chinese researchers.
FPSAC 2007 marks the first time this conference series will
take place in Asia. FPSAC 2008 also marks the first time this conference
will be held in South America. In contrast to other countries in the region
such as Argentina and Brazil, Chile still has a relatively small mathematical
community. However, it has been fast growing in recent years. We are hopeful
that FPSAC will bolster the efforts for the developement of mathematics in Chile,
at the very least in the field of Discrete Math. There will be conference
Proceedings for each of these two conferences.